Equipment to Link Gonzaga University's Campus-Wide Network to NorthWestNet

Gonzaga University is establishing a connection to NSFNET via a 56,000 bits per second line through the NorthWestNet mid-level network. The connection enables the school's faculty and students to communicate and collaborate with the national scientific and educational community, and to access network resources. Areas of science to be addressed on the Internet by Gonzaga include physics, computer science, engineering and mathematics. Gonzaga is also implementing a Center for Information and Technology, which will serve as a resource accessible over the Internet housing databases in scientific, economic, demographic and technological fields. This award funds part of the costs for one year.